Domain Wall Fluids

Theoretical research will be undertaken on preroughening and reconstruction transitions in crystal surfaces, and the connection between this and valence bond phases in quantum spin systems. The emergence of the first experimental evidence for preroughening opens up an array of important theoretical questions. For instance, what is the influence of the interplay between preroughening and reconstruction in certain facets of face centered cubic crystals; what about the roughness of disordered flat phases during growth. Roughening induced deconstruction transitions have a chiral character and are governed by a new discrete invariance related to super symmetry. %%% The study of surfaces, and the transitions which take place on them, is of fundamental importance and has many technological applications. The proposed research deals with studies of novel phase transitions on surfaces and their relationship to more exotic types of interacting systems.